Building Mathematics Momentum in Science Centers

TERC and ASTC will collaborate with thirteen science and technology centers around the country to create and implement a professional development program for science center staff. The goal of this project is to use exhibits and educational programs as a vehicle for building a presence for mathematics in science centers nationwide. The participating science centers will develop mathematics initiatives while working with TERC and ASTC to create workshops on topics such as data, measurement, algebra, national standards and visitor accessibility. Start-up sites will create training networks in California, Florida, Massachusetts, Missouri, Minnesota, New Jersey, New York, North Carolina, Oregon and Texas. Workshops will be offered on-line and also at local and national conferences. The project will produce a publication entitled "Promising Math Practices in Science Centers" that will highlight best practices for the incorporation of mathematics into museum programs. It is anticipated that the number of participating institutions will increase to 120 during the life of the project.